Algebraic Groups Actions and Non-Commutative Algebra

REICHSTEIN, DMS 98-01675 The proposed research includes two related projects: The purpose of the first project is to study the minimal number of parameters required to describe all algebraic objects of a certain type, e.g., field extensions, central simple algebras or quadratic forms. This number can usually be expressed as a numerical invariant of a naturally arising algebraic group. This invariant is called the essential dimension. It has been computed in a number of cases by J. Buhler and the PI; additional results were recently obtained by J.- P. Serre. The PI will continue this line of research through a combination of our geometric techniques and Serre's cohomological approach.The second project focuses on the study of finite-dimensional algebras and their deformations. Such an algebra can be represented by a set of structure constants, which can, in turn be identified with a point of a certain algebraic variety. L. LeBruyn and the PI recently described all smooth irreducible components of this variety, answering, in particular, an old question of Seshadri. A number of of fundamental objects of classical abstract algebra, such as field extensions, division rings, and quadratic forms will be investigated. Some of these and related objects have recently found applications in areas ranging from coding theory to computer graphics. The aim of this project is to increase our theoretical understanding of of the nature of these objects. In particular, the most economical ways of representing them are sought. In this connection the smallest number of parameters required to represent an object of a given type are studied. This number tells us how many objects of each type are ``essentially different'', i.e., cannot be transformed into one another by a change of coordinates.